CAREER: Formal Methods for Silicon Complexity in Nanometer VLSI Design

The VLSI design productivity crisis, that is, the fact that the number of
available transistors grows much faster than the ability to design them
meaningfully, has become the greatest threat to the growth of semiconductor
industry. Silicon complexity, which refers to the impact of previously
ignorable physical phenomena, is at the center of this crisis. Based on our beliefs that
the only effective way to improve productivity is to maintain design complexity
at a manageable level, and that formal methods are the right techniques for
complexity control, the objective of this research is to improve design
productivity by applying formal methods to silicon complexity problems such as
inductive/capacitive couplings and process variabilities.

The research develops methodology, models, and algorithms to handle silicon
complexity through the application of formal methods. By treating timing
analysis as extracting semantics of a circuit, a timing analysis system is developed
that handles both inductive and capacitive coupling delay variations. The system
develops and uses a range of inductive coupling models with different accuracy
and complexity. Based on that, timing macromodels for coupling delays are
created for library characterization and IP specification. Clock scheduling and
retiming algorithms are developed to separate signal switching times for coupling delay
optimization. Signal switching time information is also explored in routing and
placement to minimize coupling between sensitive wires. For process
variability, statistical models are developed and combined into the timing analysis
system to compute the statistical performance of a circuit, and stochastic
optimization is used to optimize the statistical performance. The integrated education
activities aim at two aspects of computer engineering education: 1) educating students in
formal methods, especially their applications to nanometer VLSI design, thus
bringing needed mathematical rigor into the discipline; 2) introducing students
to silicon complexity and its impacts on VLSI design so that they are equipped
with necessary background for modern high performance VLSI design.